Workshop on Engineering Education

The Forum on Engineering Education (1987) is being convened by a Consortium of MIT, Stanford and the University of California at Berkeley with the support of the National Science Foundation. It is the first step toward the organization of a consortium of research universitites and primarily undergraduate institutions to address the crucial problems of engineering education in the United States. The Forum will proceed from the premise that better collaboration of these types of institutions can help mitigate the problems such as faculty shortages and the technical obsolescence of faculty and practicing engineers which presently face engineering education in the United States. A three day workshop is planned with participation by two persons from each of several institutions in addition to those representing the members of the consortium.